Collaborative Research: An Ice Modeling Program for GISP2

This award is for support of a 3 year cooperative modeling program involving the University of Washington (UW) and the Ohio State University (OSU). Each research team will focus on a complementary part of the ice modeling program, UW on derivation of paleoclimate forcing on the ice flow, and OSU on the development of ice fabric and hardness variations which must be known before adequate models can be constructed. Formal inverse techniques will be used to derive the rheological parameters, and the climate forcing histories. Ice core and borehole data will also be used to test the model.